2011 Shipboard Scientific Support Equipment: R/V Atlantic Explorer

ABSTRACT

09 August 2011
Proposal Number: 1119817
Institution: Bermuda Institute of Ocean Sciences
PI: N. Bates
Co-PI: R. Harelstad

The proposal requests five Shipboard Scientific Support Equipment (SSSE) items for the R/V ATLANTIC EXPLORER operated by the Bermuda Institute of Ocean Sciences (BIOS); namely hydraulic system evaluations, an engine monitoring and alarm system, an oily water separator, a digital power meter, and RVSS Appendix B analysis of the stern A-frame and deck bolting pattern. These items will either improve safety or enhance the vessel’s science support capabilities.

Broader Impacts: The R/V ATLANTIC EXPLORER supports federally funded scientific research throughout the Atlantic basin to expand human knowledge of the ocean environment. The vessel also conducts the routine servicing of the Bermuda Atlantic Time-series Study (BATS) moorings. During operations, graduate and undergraduate students are routinely exposed to seagoing oceanography through real-time satellite connectivity from ship to shore, and open house events. All told, the ATLANTIC EXPLORER is scheduled to complete 155 NSF sponsored days in 2011.